NSF IUCRC Evaluation Project

As the Industry/University Cooperative Research Centers Program has evolved over the years, the evaluation effort relies heavily on standardized collection of data by independent on-site evaluators at every I/UCRC Center.

An evaluation system built upon a national network of local evaluators requires a considerable amount of support and coordination. Although the support and coordination provided by NSF staff and the evaluators coordinating committee are essential to the programs success, these mechanisms are not adequate to meet the needs of an evaluation project that has grown to be national in scope.